Materials Studies and Superconductivity of Uranium Platinum 3

9705473 Halperin The Ambitious goal of this program is to understanding the mechanism for superconductivity in heavy fermion compounds. The first step is to identify the symmetry of the order parameter and we focus first on Upt3, which is arguably the prototype unconventional heavy fermion superconductor. In order to determine the pairing state in Upt3 we propose to make single crystals with a range of impurities and measure the impurity dependence of the physical properties, including the thermal conductivity, specific heat and the phase diagram. In order to identify the spin structure of the pairing state, we will measure NMR knight shifts and the upper critical fields and compare with calculations that are sensitive to surface scattering and strong spin-orbit interactions. We will perform measurements of magnetization and magnetoresistance and, with our collaborators at other institutions, we will investigate further the magnetic phase diagram using neutron and magnetic X-ray scattering. We will compare these results with calculations of impurity and defect scattering on the physical properties for the principal candidate ground states. The low-temperature transport coefficients, eg. thermal conductivity, are important because they reflect the low enrgy excitations associated with the nodes of the gap. We believe that transport measurements on high quality single crystals, such as we are able to grow, will be decisive in resolving the orbital symmetry of the pairing state in heavy fermion superconductors, e.g. Upt3. %%% It is proposed to solve key problems in heavy fermion superconductivity with initial focus on the important compound Upt3. The results of this research will have impact on understanding of superconductivity in other correlated fermion superconductors, notably high temperature superconductors. That superconductivity in Up t3 is unconventional, is evident in its complex phase diagram and the power laws that are exhibited in the temperature dependence of thermodynamic and transport properties, particularly at low temperatures. Yet it is not yet known which of a number of likely possible candidates for superconducting pairing state is the appropriate model for Upt3. Separating intrinsic and extrinsic behavior is the key to solving this problem and is a challenge for experimental and theoretical condensed matter physics in concert with a materials program. Growing and characterizing the purest, most defect-free crystals possible is essential to the success of research in this field and we have developed facilities for this purpose. Interest has been expressed from an international group of scientists to collaborate with us, working with the materials produced in these facilities. The proposed work draws together four principal investigators, Professors Bedzyk, Halperin, Sauls and Seidman from two departments at Northwestern University: Materials Science and Engineering and Physics and Astronomy. These researchers have expertise in materials science, crystal growth and characterization, experimental low temperature physics, and theoretical physics of correlated electron systems and superconductivity. The expertise of the members of this group is at the forefront of their respective disciplines. ***